Conference on The Function and Evolution of RAS Proteins; Cold Spring Harbor Laboratory; May 9-13, 1990

The RAS genes were first discovered as the transforming principles of oncogenic retroviruses, but have subsequently been found to be important normal constituents of the mammalian genome. They have been highly conserved in evolution and are members of a larger family of genes which encode small molecular weight guanine nucleotide binding proteins. Although the function of RAS remains unknown, there has been recent, striking progress in understanding of the RAS proteins, and much more can be anticipated in the near future, including: an understanding of effector function for RAS in micro-organisms, discovery of a large number of additional, RAS-related genes and their modes of action, the regulation of RAS and RAS-related proteins, their processing, their structure, and their physiological role. It is becoming clear that a vast array of cellular processes are controlled by these proteins, and hence, an understanding of RAS is not only essential for an understanding cellular growth control, but for much of cell biology as well. About 300 investigators representing cell biology, molecular biology, pharmacology, and structural biochemistry are expected to participate. The proposed meeting on "The Function and Evolution of RAS Proteins" will bring together investigators in the field of RAS research in order to accelerate the exchange of information, promote cooperation and catalyse the development of fresh approaches to the understanding of this important cell biological problem.